Correlation of Component States and Computation of Probability Distributions for System Performance Measures

This research project is concerned with obtaining a probability distribution for a system performance measure when component states are dependent random variables. The interaction of correlation structure in the component states with the system structure will be investigated to determine its impact on algorithms for computing the distribution of the system performance measure. The research will be initiated by considering a specific model derived from shocks that affect several components of a 'binary coherent system.' It is expected that the results will identify classes of correlation structures which will permit the development of useful algorithms for calculating the distribution of the system performance measure. This theoretical research has the potential of yielding better techniques forevaluating the reliability of complex systems arising in diverse fields such as computer networks or automated manufacturing.